Collaborative Research: Development and Support of the MB-System Software Package for Processing and Display of Swath Mapping Sonar Data

MB-System is a public domain UNIX package for the processing and display of swath mapping sonar data. This project will continue the development and maintenance of the MB-System software package. In addition, new and improved documentation will be developed, new functionality added, and new data formats supported.